Coronary Fluid Dynamics

Research will investigate flow through the coronary blood vessels. This will be achieved by development and application of a computer model of coronary circulation and by experiments to be carried out in vivo or in simulation. The researchers will also investigate the responses of cultured coronary endothelial cells to fluid-imposed shear stress and pressure. The problem which this research addresses, (coronary artery disease) is a major cause of death and disability. The data which will come from this research should have significant impact on health care delivery.